Conference: SUMIRFAS 2026

This award supports participation in the 2026 edition of SUMIRFAS held at Texas A&M University during the period from July 31 to August 2, 2026. SUMIRFAS, which started over 35 years ago as the SUMmer Informal Regional Functional Analysis Seminar, has grown into an anticipated and respected annual event that showcases worldwide experts and leaders in the fields of Analysis and Probability broadly construed, as well as promising Ph.D. students and postdocs. This is one of the focal points of the Workshop in Analysis and Probability held every Summer at Texas A&M University.

One fundamental aspect of SUMIRFAS is to bring together senior and junior researchers and advanced graduate students in analysis and probability and related fields of mathematics in order to broaden the education of the early career participants and to promote interaction among researchers working in different areas. SUMIRFAS has a wide impact by providing intellectual stimulation for all participants as well as giving an opportunity to a diverse group of junior participants to increase the breadth and depth of knowledge and to interact with senior researchers in several areas of mathematics. There is also significant outreach to applied mathematics and computer science. This award will provide support to many researchers, including many not on sponsored research grants, who will benefit from contact with established leaders in the field and from being in a research-friendly environment. Emphasis is placed on the support of early-career researchers and graduate students. More information about the conference is available at https://people.tamu.edu/~florent/workshop/2026/sumirfas2026.html.